ITR/PE: AVENUE: Adaptable Voice Translation for Minority Languages

Our primary research goal is to develop a prototype voice-enabled
translating communicator which will deliver information services across
the linguistic divide for minority languages in order allow remote
linguistically-diverse users to communicate directly with Internet
content and databases, and more importantly to communicate with others
speaking a different language from their own. The latter will enable
information, education, and, for example, health services, to reach
remote minority-language communities. Achieving this goal requires
major advances in machine learning for translation and in cross-language
speech-recognition adaptability to wider language phenomena.

Traditional transfer-rule-based MT requires up to a person-century
to build and perfect a new language pair. Statistical and
Example-Based MT replaces human coding effort by vast amounts of
bilingual training data, which are virtually unobtainable for most
minority languages. Without a radical advance, leading to an
over-an-order-of-magnitude improvement in development time, the
only commercially justifiable MT applications involve the major
European languages, Japanese, Chinese, Korean, Arabic and perhaps a
couple more relatively-popular languages. The vast majority of human
languages are currently relegated to the proverbial MT dust heap.

We propose new MT approaches based on extended and new machine
learning methods. The first approach consists of statistical MT
methods that learn from orders of magnitude less training data,
and that can more effectively incorporate prior linguistic information
(including dictionaries, word classes, and known linguistic
rule classes or constraints) by using the joint source-channel
modeling approach combined with exponential (maximum entropy) models.
The second approach is a new method for acquiring high-quality MT
transfer rules from native informants which decreases dependence on
human experts and reduces development time. Semantically-conditioned
transfer rules are generalized via a new locally-constrained
Seeded Version-Space method based on a controlled bilingual corpus
and interactive tools to elicit information from native informants.
The third method builds general phone models across multiple language
families for speech recognition and adapts the recognizer to new
languages with minimal new- language training data. All of these
methods are based on new and existing machine learning algorithms
that combine prior knowledge with limited amounts of new data in
order to converge quickly on working machine translation and speech
recognition and synthesis systems.

The primary societal impact will be a significant contribution
to the global democratization of informa- tion, a process that
requires bridging current linguistic barriers, especially for
low-density or economically- disadvantaged languages. Additionally,
preservation and teaching of endangered languages will be directly
enabled by the new linguistic and acoustic knowledge coupled with
existing tutorial software. If successful, Avenue (Adaptable Voice-Enabled
Natural-translator for Universal Empowerment) will be the prototype
of an MT system that will empower world-wide access to multilingual
information.